Research Experiences for Undergraduates in Neuroscience at the University of Maryland, College Park

9322013 Presson This award provides funds to the University of Maryland to continue their successful REU program in the area of Neuroscience for an additional three years. In this extension, the PIs have built upon their experience to focus on fostering critical thinking skills in student participants. The inclusion of both spring introductory activities, and a final fall "independent contribution" assignment further integrate the program. Students will truly experience the development of their understanding of, and contribution to, a scientific project. In addition, we have expanded the students' involvement in extracurricular activities so that their time here is even more fully integrated around their research experience. The REU program is run by the site Director, Dr. Joelle Presson, who is intimately involved with the students. She runs the summer journal club, and is a mentor for REU students in her own lab. The 17 participating REU faculty are all active, productive researchers in the Center for Neuroscience at University of Maryland, College Park. These faculty come from diverse departments on campus, and form an interactive Neuroscience community here. We are all supportive of the goals for our new program, and look forward to giving students these valuable opportunities. ***